Conference: Eleventh Conversation: Biomolecular Stereodynamics to be held June 15-19, 1999 at SUNY Albany,NY

Sarma
MCB 9900532

The eleventh Conversation in Biomolecular Stereodynamics
will meet at the State University of New York, Albany
from June 15-19, 1999. This meeting is to feature general lectures as
well as poster discussion papers, covering subject areas ranging from
nuclear receptor DNA computing. A total of 60 lecturers, evenly distributed
among senior and young investigators, in addition to graduate students and
postdoctoral fellows are expected to attend the event along with 500 scientists
from over 20 countries. This series of "Conversations" has been shown to be an
excellent forum for exchanging ideas and information in Molecular Biophysics.
An impact of the upcoming meeting on the development of new concepts and
promotion of collaborations is anticipated.